Research in Random Matrices and Integrable Systems

Random matrix theory has had remarkably wide applicability.
The spacing distributions arising in random matrix theory have
over the past few years been
shown to have deep applications in number theory;
there are applications in numerical analysis and computational
complexity where condition numbers of random matrices are important;
random matrix theory has motivated developments
in the Riemann-Hilbert method which in turn finds applications
to a variety of problems in integrable systems and inverse scattering.
In physics the applications range from many-body systems
(both atomic and nuclear), to quantum chaos to quantum transport
in mesoscopic systems. Four areas for research are
specified. The first is related to the fact that in certain random
matrix ensembles the measure describing the eigenvalue distribution
is the Gibbs measure for charges interacting via a potential at inverse
temperature beta equal to one, two or four (corresponding to orthogonal,
unitary and symplectic ensembles, respectively). The limiting spacing
distributions for these ensembles are now quite well understood but
the methods are applicable to these values of beta only. The question
for general beta, while quite difficult, is mathematically interesting
and quite important in statistical physics. A new approach looks
promising and we intend to pursue it. The second area of research
is the question of universality of the limiting distribution of the
largest eigenvalue in matrix ensembles. This would be analogous to
the universality of the Gaussian distribution for sums of independent
random variables, the famous Central Limit Theorem. Thirdly, we propose
to study the order statistics of the spacings between eigenvalues (which
is different from the spacing distributions between consecutive
eigenvalues mentioned above). For example, what is the probability
distribution for the largest or smallest spacing? There are known
results for independent random variables but none yet for for random matrices,
whose eigenvalues are far from independent. Finally, we expect to complete earlier
work on the asymptotics of solutions to the periodic Toda equations by
determining the asymptotics on the so-called critical curves, where the
asymptotics will take a very different form. The theory of Wiener-Hopf operators
and operator determinants should play a decisive role in this investigation.
No doubt the pursuit of these four questions will lead to others.

In the 1950s Eugene Wigner, in his now classic study of highly excited
states of large nuclei of atoms, introduced a mathematical model
to describe the spacing between these states.
This model goes under the name of random matrix theory.
Since Wigner's work in nuclear physics, it has been shown that the
mathematics of random matrix theory has far-reaching applications to
condensed matter physics, atomic physics and the new area of quantum chaos.
In mathematics itself, random matrix theory has begun to appear in such
diverse areas as number theory, combinatorics and numerical analysis.
It is natural to ask why there is such wide applicability of random
matrix theory. In probability theory the bell-shaped curve is widely
applicable because of a theorem which says roughly that when one
adds quantities which are random and independent, the sum follows
the bell shaped curve regardless of the distribution of the random
objects being added. The distribution functions of random matrix theory
appear to have a similar universality for a class of problems where
there is a high degree of dependence in the underlying processes.
In the present project the mathematics of random matrix theory will be
further developed with an eye kept on possible applications.
In earlier work a general mathematical framework was developed that
related the distribution functions of random matrix theory with
solutions to certain equations which are said to be integrable.
This mathematical theory gives exact formulas for distribution functions
in random matrix theory and provides efficient numerical methods for
their computation. Computing these distribution functions will allow one
to compare them with experimental data.